Elementary Particle and Nuclear Theory (Physics)

This project continues work on a variety of topics in electroweak interaction physics and theory and phenomenology of CP violations, with emphasis on stimulating new experimental analyses. It also includes work on dynamical models of the quark mass matrix within a given generation, as a first step investigating various aspects of the strong-coupling standard model, such as the effect of radiative corrections. An extensive theoretical analysis of various hypernuclear transitions, now underway, will be compared with data on the A- dependence of these processes. A program on studies of the strong interactions will continue. An improved derivation of the effective Lagrangian starting from the basic QCD theory of quarks and gluons is being attempted. Other studies involving the so-called anomalous sector of the theory, and an effort to present a unified phenomenology of all low energy processes are planned. An attempt to compute bag mode amplitudes to higher order in the QCD coupling constant via a mode-truncation approach has begun. Theoretical work in other areas will continue. A calculation to determine the effects on the gravitational field due to the presence of matter at nonzero temperature is nearing completion, and future work will apply this procedure to the early universe. A model of quark matter in a diquark phase is under investigation. Research continues on the solar neutrino problem. Recent work on the source of baryon-number violating interactions motivates a re-examination of past studies of baryogenesis.